Ontology and Evolution of Children's Playgroup Formation

How do young children form relationships in the context of transitions and change? In an attempt to answer this and several other related questions about human development and complex social processes, this study, implemented by a cross-disciplinary team consisting of an agent based modeler, several human developmentalists, and a mathematician, will examine the ontology and evolution of playgroups using an agent-based model (PlayMate) to simulate young children forming play partner preferences. In conjunction with the development of the agent based model, we will collect daily observations of 60 young children (ages 3-6) from three separate preschool classrooms over an academic year. Each child will be observed 75-125 times per month, allowing us to generate about 1500 - 3000 observations per month per classroom. These data will allow us to investigate the dynamic formation and evolution of playgroups, a micro-social phenomenon well suited for agent based modeling. In addition to observations of play activities, data will also be collected on child characteristics using teacher and observer ratings. These data will be used to determine the veridicality and validity of the simulation. This modeling approach provides us with the opportunity to establish this methodology as a prototype of how to simulate micro-social processes and compare the results against real data. By combining empirical data with theory, the findings of this study will contribute to building models of social influence that can be applied not only to children, but also to humans throughout the lifespan. Moreover, our interdisciplinary approach illustrates the potential richness of cross discipline work, and lays the foundation for training future scientists